Development of Engineering Technology Laboratory

Montgomery County Community College is revising its Engineering Technology Program in response to a plan developed by merging ideas and experiences of engineers, educators, and engineering technicians. The goal of the improved curriculum is to give the students a fundamental background in general engineering theory and applications of this theory to laboratory analysis. The curriculum emphasizes good laboratory techniques, computer- aided data analysis, and both written and oral communication of laboratory results. This project provides equipment for the required laboratory courses. The laboratory equipment demonstrates various laboratory procedures that are specifically designed to reinforce the engineering principles presented in lecture. Some of this equipment includes software to aid in data analysis, and the project includes two computers, one printer, and one plotter to enable the students to perform computer-aided data analysis.